Extremal Problems in Graph Theory

Extremal Problems in Graph Theory

The PI plans to continue his research in the area of developing
and applying a method in extremal graph theory based on the
Regularity Lemma and the Blow-up Lemma. The method finds certain
special subgraphs in dense graphs. The main idea of the method is
to reduce the general embedding problem in the original graph to
embedding into (Szemeredi-) regular graphs. For the purpose of
finishing the embedding once this reduction is achieved, a general
tool, called the Blow-up Lemma, was developed to find bounded
degree spanning subgraphs in these regular graphs. The PI proposes
to develop this method further. He plans to improve on some of
earlier applications of the method, to apply the method to new
problems, and to extend it into new directions.

This research is in the area of extremal combinatorics. The
central question of this field has the following form: determine
the maximum (or minimum) size of a discrete mathematical object
that satisfies a certain condition. It turns out that this general
topic has connections to very diverse fields (geometry, design
theory, number theory, algebra, topology, etc.) and to areas with
important concrete applications in everyday life (computer
science, coding theory, cryptography, optimization and scheduling
problems, communication and networking problems, etc.). Therefore
the broader impact of this proposal is that developing the method
further and achieving results on the proposed research problems
will have serious implications in these applications as well.